The Stanford Integrated Digital Library Project

This project - the Stanford Integrated Digital Library Project (SIDLP) - is to develop the enabling technologies for a single, integrated and "universal" library, proving uniform access to the large number of emerging networked information sources and collections. These include both on-line versions of pre-existing works and new works and media of all kinds that will be available on the globally interlinked computer networks of the future. The Integrated Digital Library is broadly defined to include everything from personal information collections, to the collections that one finds today in conventional libraries, to the large data collections shared by scientists. The technology developed in this project will provide the "glue" that will make this worldwide collection usable as a unified entity, in a scalable and economically viable fashion.